Groups and Algebraic Structures in Topological Quantum Field Theory

Abstract

Award: DMS-1007255
Principal Investigator: Constantin Teleman

The proposed research comprises several, thematically related
projects at the interface of topology, 2-dimensional quantum
field theory and category theory. The first project, gauged
mirror symmetry, combines group actions on projective manifolds,
equivariant K-theory and ideas from category theory (open-closed
TQFTs and a conjectural Brauer group of equivariant K-theory).
One application would be the determination of Gromov-Witten
theory of GIT quotients from the gauged Fukaya category of a
symplectic manifold. A concrete description of gauged topological
quantum field theories in two dimensions is proposed, based on
recent progress by Kontsevich, Costello, Hopkins and Lurie on
'extended' topological field theories. The PI has a concrete
proposal for coupling a 2-dimensional TQFT to a compact symmetry
group and quantizing the gauged theory. This combines ideas from
physics (Landau-Ginzburg super-potentials) with earlier work by
the PI and collaborators on equivariant (twisted) K-theory and
the general index formula on moduli of principal bundles over
Riemann surfaces. The second project explores the 'higher
algebras' introduced by the PI and collaborators as simplified
models of higher categories, and the a toy example of a
homotopical TQFT for finite homotopy types. This is hoped to be a
good working ground for the interaction of exotic homology
theories with ideas from QFT. A third, closely related project is
the construction of Chern-Simons gauge theory as a 0-1-2-3 theory
by topological methods, along the lines already accomplished by
the PI and collaborators for torus groups.

To explain the context of this research, one must recall that the
fundamental interactions governing energy and matter in the
universe are believed to be governed by quantum field theory, a
sophisticated mathematical framework that has evolved from the
beginnings of quantum mechanics over the last century. Quantum
field theory has never been reconciled with general relativity --
another well-supported physical theory -- and much mathematical
research over the last six decades has centered around
reconciling the two. Topological quantum field theory is a toy
attempt to come to grips with the problem while avoiding the
analytical difficulties: the notions of distance and magnitude
(for instance, mass) are abandoned, and the geometry of
space-time is directly related to the algebraic structure of the
quantum field theory. Substantial progress in understanding the
algebraic structure has been made over the last decade thanks to
work by Kontsevich, Hopkins and Lurie. The PI's projects revolve
around integrating these recent developments with the idea of
symmetry -- in the form of gauge theory -- which is known to be
indispensable in realistic physical theories. (One should recall
that the so-called 'standard model' of particle physics,
comprising the electromagnetic, weak and strong interactions, is
a gauge theory.)